Expedited Novel Research Award: The Active Control of Rotating Chains and Shafts

An expedited research and development effort is proposed to formulate a nonlinear control theory of rotating shafts and chains. There will be three components to this effort: (i) We shall extend our recent work on the nonlinear stability theory of buckling in rotating shafts and chains to obtain a sharper picture of the way in which buckling depends on both design parameters such as mass distribution and shaft stiffness and also on the angular velocity profile of the rotation. (ii) Taking account of the nonlinear dynamics of these systems, we shall draw on recent work in nonlinear control theory to lay the theoretical foundations for active control of buckling. (iii) We shall design an experimental facility to support and guide future theoretical research in the control of rotating mechanisms.